Development of a PCR-based assay of transcription termination

This is a small grant for exploratory research. Experiments will be conducted in order to determine the feasibility of an assay for eukaryotic transcription termination based on the polymerase chain reaction (PCR). The underlying concept is that PCR should be able to detect vanishingly small quantities of a specific nucleic acid in the presence of large excess of non-specific competitor. The assay to be developed will be designed to detect the nascent RNAs that are the products of transcription using PCR. The study involves a number of untested assumptions and this award will test those assumptions. If successful, the research will lead to a relatively simple and quick way to study eukaryotic transcription termination.